Marine Biotechnology Fellowship: Role of Chromosome- Associated DNA Binding Proteins in the Viable but Nonculturable State of Vibrio Vulnificus

McGovern 9321699 Approximately 50% of the active bacteria that can be counted in seawater resist attempts to culture. One reason may be that bacteria are capable, under natural conditions of stress, of entering a viable but nongrowing state. The viable but nonculturable (VBNC) state involves a metabolic program in which the cell remains viable and maintains a low level of metabolism, but cannot be cultured. Understanding the factors that govern entry into this state may provide a window of entry into the biology of the uncluturable bacteria of the ocean, The best characterized system for studying entry into and exit form the VBNC state is the marine bacterium Vibrio vulnificus. V. vulnificus enters the VBNC state in response to temperature downshifts. Entry into the VBNC state poses problems at the DNA level: the chromosome-associated DNA binding proteins (sometimes called "histone-like" proteins) may play an important role in the VBNC state. One of the these proteins, HNS, has been shown to silence transcription in vivo and to stabilize and ordered DNA structure in vitro. Its pleiotropic effects indicate that this protein plays a role in allowing cells to sense various types of environmental change. HNS is an abundant, cold-inducible protein that varies in concentration over the course of a cell's growth cycle, reaching its maximal concentration during stationary phase, a period of relative metabolic quiescence. This project will test the hypothesis that during a temperature downshift, the V. vulnificus homolog of HNS is induced, silencing expression of genes needed for normal growth and leading to the VBNC state in that bacterium. Such a system could account for a significant portion of the nonculturable bacteria present in the ocean environment. ***